Tracking Individual Differences in Decision Making

Abstract
Levin #0001316

Why do two persons, faced with exactly the same decision, decide differently? Tile
existence of individual differences in judgment and decision making has been widely
noted but riot many previous studies have focused on identifying the antecedent
conditions. Tin this proposal we focus on stable person characteristics that relate to the
manner in which information is processed in arriving at a judgment or decision. The
proposed experiments will provide links between individual difference indices and
measures of the process by which a decision maker reaches his or her final choice.
Individual difference measures to be used in the proposed research include personality
factors such as extraversion and neuroticiscn which have been shown in previous research
to account for significant variance in various tasks in memory and cognition, measures of
affective state, and most notably, a measure of cognitive style widely and successfully
used in the areas of persuasion and attitude change but only recently used in the area of
judgment. and decision making. Such measures should provide us with new insights into
why, in the same situation, one person will decide one way and another person will
decide the other way.